Performance Driven Layout and Logic Synthesis

The increased chip complexity causes that average interconnect lengths increase and proportionally
larger and larger fraction of chip's area is occupied by interconnects. This proposal addresses several is-sues
related to interconnects in submicron technologies.

We will concentrate on simultaneous switching cross-talk noise effects in RC interconnects. Our goal
here is to develop efficient, easy to compute and accurate bounds on delay in the presence of crosstalk and
to characterize and prevent propagating crosstalk signals. Besides correcting the crosstalk caused prob-lems
we will also develop methodologies of circuit optimization in the presence of crosstalk. We will develop
gate sizing tool, buffer insertion, spacing and net reordering which will consider both cross-talk and delay.
At the same time we will explore regularity at the Boolean level to achieve layouts with mostly local
interconnects. The ultimate goal is to develop logic synthesis methodology which would produce highly reg-ular layout structures without large area penalty. We propose to continue our work on wave steered design methodology and we will develop tools for logic synthesis and physical design of such circuits.